Group Travel for U.S. Participants at Seventh International Conference on Small-Angle Scattering (Prague, 13-16 July 1987)

Travel support of up to a total of $10,000 is provided for approximately 11 U.S. participants in the 7th International Meeting on Small-Angle Scattering, to be held July 13-16, 1987 in Prague, Czechoslovakia. Topics of the conference are the theory, instrumentation and application of small angle x-ray (SAXS) and neutron (SANS) scattering. Applications of both these techniques are found in materials science (ceramics, metals, alloys, etc.) polymer science (mixtures, blends, solutions, etc.), molecular biology (membrane structure, proteins in solutions, nucleic acids, etc.), catalysis and chemical applications (structure, porosity, size distributions, surface areas, etc.), critical phenomena and condensed matter physics. Participation by U.S. scientists is essential if the U.S. is to match the pace set in the last decade by the European scientists in both SANS and SAXS. Currently in the U.S. there are six SANS facilities at both reactor and pulsed neutron sources. Several high flux synchrotron source facilities are now available for SAXS. It is intended to support only those participants who will present papers and/or fullfill a significant technical function at the conference. Applications will be screened rigorously for scientific merit by a procedure outlined in the proposal. A final report will be provided identifying the U.S. scientists that were supported and describing the scientific highlights of the meeting. Each person receiving support will also provide a one-page summary of their experiences. This is a jointly funded grant for Thermodynamics and Transport Phenomena and Polymers Programs.